Travel: NSF Student Travel Grant for 2025 IEEE Global Communications Conference (IEEE GLOBECOM 2025)

The 2025 IEEE Global Communications Conference (IEEE GLOBECOM 2025), held in Taipei, Taiwan on December 8 - 12, 2025. IEEE GLOBECOM is one of the two principal conferences organized by the IEEE Communications Society (ComSoc), held annually to showcase advancements in communications and networking research. Drawing over 2,900 international participants, including academics, researchers, and industry professionals, GLOBECOM facilitates significant knowledge exchange through its technical symposia, industry forums, workshops, and exhibitions. IEEE GLOBECOM 2025 will feature an extensive technical program and industry-focused events. Participation in IEEE GLOBECOM offers students an invaluable opportunity to engage in cutting-edge research, expand their professional network, and gain career-enhancing exposure to academic and industrial leaders in the field of communications and networking.

This project supports students from US universities to attend IEEE GLOBECOM 2025 in person. Students will have the opportunity to present their work and be exposed to state-of-the-art developments in the field. They will also have the opportunity to interact with peers from institutions worldwide, meet with senior researchers, and participate in discussions that are likely to shape the future of the field. This grant will target students who will substantially benefit from attending this conference but have limited travel funds. Priority will be given to first-time attendees.